Engineering Research Equipment: Precision Motion Control in Presence of Friction

9412349 Langari The award is for the purchase of components of an experimental setup which will be capable of micromotions and which will be used to support research in engineering. The equipment includes linear actuators, a laser doppler velocimeter, force transducer, acoustic emission sensor, and digital signal processor based data acquisition and control equipment, along with an optical bread board and custom built accessories. The equipment will be used for research involving development of accurate models of friction-induced dynamics at low velocities and development of effective control strategies to deal with friction-induced dynamics at low velocities and in micro- positioning situations. The better understanding of friction and its control would be of help in many manufacturing applications involving precise motion control.